KDI: Towards Ideal Data Representations

9872890
Ron
Advances in communication, sensing, and computational power
have led to an explosion of data. The size and varied formats for
these datasets challenge existing techniques for transmission,
storage, querying, display, and numerical manipulation, to
the point where limits on their accessibility and portability may
severely restrict their usefulness for human knowledge. This
often leads to the paradoxical situation where experiments or
numerical computations produce rich, exquisitely detailed
information, for which, at this point, no adequate analysis
tools exist. In order to address this challenge, the
investigator and his colleagues develop a new technology for data
representation based on the two basic principles of multiscale
decompositions and redundant representations. Multiscale
decompositions arrange data into strata reflecting their relative
importance. This allows for rapid access to good coarse
resolution of the data while retaining the flexibility for
increasingly fine representations. Redundant representations
allow for a multitude of data decompositions. While this on the
surface appears contrary to the need for efficiency, the
redundancy gives the flexibility of choosing `best
representations' from a unified family of representers and
thereby provides efficiency and robustness. The proposed
research is expected to deliver major results for: (i) accurate
representation of image and acoustic data, (ii) parsimonious
representation of high dimensional data, (iii) parsimonious
representation of images and volumetric objects with
singularities along curves and surfaces, (iv) acceleration of
scientific/engineering computations.
The KDI initiative takes place at a time when intellectual
and commercial life are beginning to feel the effects of a
revolutionary combination: sensor ubiquity, computational
ubiquity, and internet connectivity. A clear priority in all
fields of commercial, engineering, and scientific endeavor must
be to identify and exploit the opportunities available in this
new era. The center of the effort should be the intensive
development of new schemes for representing digitally acquired
data, and for rapidly manipulating those representations. In
fact, advances in this central area have tremendous
repercussions, accelerating progress in every other area. For
astronomers straining to detect faint gravitational signals
coming from the farthest reaches of the universe, or looking back
in time to the earliest moments after creation, searching for
temperature fluctuations that would give clues about the central
theories of physics; for geophysicists looking for subtle
deformations in the earth's inner structure for clues about our
seismic future; for engineers developing new medical imaging
devices; even for Hollywood entrepreneurs wanting more realistic
computer graphic simulations for mass entertainment -- data
representation plays a key role. To this end, this project
assembles a team of experts to address issues of developing new
data representations and new methods of analysis and
manipulation. The premise of this venture is that significant
advances in data representation require an interdisciplinary
effort, meshing the skills and knowledge of theoreticians and
practitioners from varied fields of research that involve large
datasets. Thus, the proposed research team consists of
mathematicians, statisticians, computer scientists, and engineers
with extensive skills and experience in the development and use
of representations for datasets. A primary component of the
project is the set of application areas in image and signal
processing, large scale computation, and computer graphics. The
project produces conceptual deliverables in the form of new
methods for storing, compressing, denoising, and querying data.
It also produces concrete deliverables in the form of algorithms
and software for use in the scientific and commercial sector. The
project serves as a national center for data representation.
Interaction between the project and other national and
international centers treating datasets is cultivated. The
project also provides a national resource for theoretical
advances, techniques of implementation, and software development.